CoPe Conference: HuRaCon: Science at the Intersection of Hurricanes and the Populated Coast

Despite progress in protecting people and property in the coastal zone, population pressure and climate change require a concerted effort to protect ecological systems while supporting prosperity, livelihoods, and community well-being. Hurricanes impact diverse groups of people differentially. Hurricane impacts can exacerbate social and economic inequities and the ability of vulnerable populations to recover. Geophysical, ecological, engineering and social scientific research that informs policy intended to mitigate hurricane impacts has the potential to advance the welfare of all populations. This conference, which is national in scope, will provide a venue for sharing new knowledge from a broad range of disciplinary and interdisciplinary approaches to hurricanes, their impacts, and modes of measuring resilience and recovery. Promoting resilience of these economically and ecologically important coastal systems in the future will require effective sharing of knowledge across diverse stakeholder groups with implications for effective decision-making and policy development. Conference results will be widely disseminated to researchers, emergency management professionals, government officials, and the public. The conference will also support the inclusion of undergraduate and graduate students in STEM related fields.

During this two-day conference, researchers will have the opportunity to share their findings with a broad audience on a wide range of hurricane related topics such as flooding, water quality and health, hurricane damage and losses, and disaster recovery. Diverse stakeholder groups, including local, state, and federal government officials, city and emergency managers, and community leaders, will be active participants in the conference communicating their perspective from the operational forefront of hurricane response and recovery. The goal of HuRaCon is to promote high quality science through the discussion of research findings, ways to move forward in developing and implementing solutions based on the findings, and advance impactful future research. The conference has three main objectives: 1) foster effective sharing of knowledge and tools derived from recent hurricane-related research funded by NSF through its RAPID program; 2) demonstrate the different research methods, perspectives, quantitative, and qualitative measurements that contribute to a far richer understanding of hurricanes and their impacts by promoting interdisciplinary collaboration; and 3) emphasize a user-based focus to increase the utility of research findings through effective communication and dissemination strategies across diverse stakeholders and potential users.